Dissertation Research: The Effects of Spatial Heterogeneity and Age Distribution on Predator-Prey Dynamics

Although recent theoretical and empirical work on predation has shown that spatial heterogeneity in the abundance of predators can qualitatively affect the outcomes of predator-prey interactions, the mechanisms by which predators aggregate are poorly known. In this study field experiments and a computer simulation will determine whether the hunger dependent emigration rate of a stinkbug, Perillus bioculatus (Hemiptera: Pentatomidae), is responsible for its pattern of aggregation to its prey Leptinotarsa decimlineata (Coleoptera: Chrysomelidae), the Colorado Potato Beetle. Considerable theoretical attention has also been devoted to the effect of age and stage structure on predator-prey interactions. An important effect of age structure occurs when juvenile predators are small, and only able to attack some stages of their prey effectively. Therefore, in addition to aggregation behavior, the effect of prey stage on the growth and survivorship of Perillus juveniles, and on the numerical response of the Perillus population will be examined. The information on aggregation behavior and the effect of prey stage on the numerical response will be used to evaluate the ability of Perillus to regulate its prey, and to assess its competence as an agent of biological control.